Careers in Biological Sciences: Advancement for Women and Minorities; Bethesda, MD; April 26-29, 1990

Achieving a successful career in science requires more than the creative process of planning important experiments and the expertise to execute them precisely. Traditionally, the training of scientists is an apprenticeship process; thesis-advisors and postdoctoral mentors are guides and role models for the young scientist. For women and minorities this process, which depends so heavily on a personal "friendship", often fails. The culture and process of science must be made available to all scientists so that they may take positive steps to advance in their careers. The proposed workshop is designed for women and minorities who are just establishing their independence as scientists, i.e. who are holding their first research grants. This early stage in a career is especially precarious; departmental and teaching demands are an absolute requirement. Despite the large investment in education and training made, this stage in the scientific careers of women and minorities often is their last. This workshop will address the following aspects of careers in biological sciences: 1) tenure and promotion; 2) grants and publications; 3) the culture of science; 4) effective communication. In addition, a critique of the workshop will be conducted so that it may serve as a prototype for future workshops directed toward the greater participation of women and minorities at higher levels of science and engineering careers. The goal of this workshop is to present women and minority scientists with some of the tools required to advance scientific careers. This is expected to be a prototype conference to help establish tested formats for the dissemination of professional advancement skills to these groups which have been traditionally under-represented in the upper levels of scientific careers, but who will constitute the greater part of the future workforce in the United States.